International College on Biophysics; Trieste, Italy; September 1992

This Science in Developing Countries Award will support participation in the International College in Biophysics to be held in the International Center for Theoretical Physics, September 1992 in Trieste, Italy. The meeting will cover methods and experimental techniques in molecular biophysics, spectroscopy, x-ray crystallography and theoretical and computational methods in selected biophysical problems. The U.S. organizer for this meeting is Dr. Horacio Farach of the University of South Carolina. Participation will be extended to 6 U.S. lecturers and 8 researchers from Argentina, Brazil, Colombia, Chile, and Venezuela. The International Center for Theoretical Physics in Trieste was established to advance research in developing countries. It supports research activities in high energy and solid state physics, it provides a range of advanced courses and conferences, and offers a full program of visits in all branches of physics and applied mathematics. By getting together scientists from developing countries to exchange information on current research in biophysics, this award will serve to advance the goals of the Science in Developing Countries program.